Fifth Annual Geometry and Topology Conference

DMS-0223533
Shing-Tung Yau

This award provides partial support for mathematicians from
underrepresented groups and other junior mathematicians without
other means of support to attend a Geometry and Topology Conference
on May 3,4, and 5 at Harvard University. The first day of the
conference will emphasize Karen Uhlenbeck's leading role in
mentoring women in Mathematics and feature four female speakers
from a well known leader in the field to other more junior
mathematicians. There will be several poster session during the
conference including one on "Women in Science." The second and
third days of the conference will feature lectures from twelve
eminent Geometers and Topologists. Further details about the conference, including lists of speakers and local hotels can
be found at http://math.harvard.edu/jdg/index.html